New Process for Hollow-Fiber Plasma-Polymer Membranes

III-9361651 Bend Research Inc. Walter C. Babcock Abstract The aim of this project is the formation of new hollow fiber membranes made of plasma polymers. The method derives from earlier work on the preparation of flat-sheet plasma membranes which were both flexible and highly selective. Testing of the hollow fiber membranes will include the specific application of separating oxygen from air. Membrane technologies offer the prospect of effective, low energy separations in processes that readily scale up. Advances in the synthesis of new membranes will help American industry be more cost effective and better able to address environmental concerns. PYI BK! ı@g ı BEAST COM ) vK CHECKERSCOM t ! # PACMAN COM d A WORMS COM U 0 !c TOPTENA CTP Q ! CASINO DOC : !E( BREAKOUTEXE * a ! f CASINO EXE & : )! CENTPEDEEXE I Y! E TETRIS EXE y! III-9361651 Bend Research Inc. Walter C. Babcock Abstract The aim of this project is the formation of new hollow fiber m ! ! F ( Times New Roman Symbol & Arial 2 2 w w 2 " h c E c E 1 Nichelle T. Coward Dana Brigham